The Use of Time-Resolved Fluorescence in Analytical Microbiology

This research is in the general area of analytical and surface chemistry and in the subfield of spectroscopy. The focus of this research is on improving the capabilities of analytical chemistry as applied to problems in microbiology. Particular emphasis is placed on the identification of bacterial and viral pathogens as well as improving the reliability of DNA sequencing. All of the proposed studies are based on the use of time-resolved fluorimetry for selective analytical measurement. A secondary objective of this research is to develop a new generation of laser-based analytical instrumentation. This research is designed to explore the possible use of lasers for identification of bacteria and viruses. Methods for evaluating the structure of DNA will also be explored. All of these studies are based on the characteristic decay of molecules which emit light after excitation with laser light. A secondary goal of this research is to develop new types of instruments which use lasers for analytical measurements.